Measurement in Science

The University of Idaho will introduce 25 high-ability Idaho high school seniors to science and engineering as practiced by university researchers. Measurement in Science, is used as a unifying thread as students are exposed to a wide variety of disciplines and activities. The program is structured around a series of discipline-focused modules including chemistry, physics, mathematics, biological sciences, earth sciences, electrical engineering, and computer science. Each module will feature teaching, demonstrations and hands-on activities. Interspersed with the modules will be activities and programs that explore research support services and facilities, the philosophy and ethics of science and scientists, and the human dimension of being a scientist. Students will participate in laboratory experiences preceded by theoretical explanations. Follow-up activities will include projects conducted at their home schools under the direction of faculty mentors and compilation of their results and experiences in a Young Scholars Research Journal.